CAREER: Investigating Ricci flow singularity formation

Abstract

Award: DMS-0545984
Principal Investigator: Dan F. Knopf

The broad goals of the investigator's research program are to find and
classify optimal geometries using curvature flows. This subject is
currently enjoying a period of intense interest and rapid progress,
inspired by Perelman's landmark results in Hamilton's program to
resolve the Poincare and Geometrization Conjectures by Ricci flow. In
applications of Ricci flow, one evolves a Riemannian metric on a
manifold to simplify and improve its geometry. In many cases, these
improvements involve changes in topology that are triggered by
singularity formation. Such improvements are possible because
solutions of Ricci flow (like many other nonlinear PDE) are expected
to exhibit very special, highly symmetric profiles in a space-time
neighborhood of a developing singularity. A thorough and deep
understanding of singularity formation is therefore of critical
importance for extracting topological and geometric information from
Ricci flow behavior. The investigator's immediate objectives focus on
singularity formation for curvature flows, particularly (1) analytic
aspects (asymptotics) of singularity formation, (2) the structure of
singularities in dimension four, (3) singularities of Kaehler-Ricci
flow, (4) the structure of Perelman's entropy and reduced distance,
and (5) applications of geometric flows to problems in
physics. Progress toward these objectives will lead to new
applications of Ricci flow in the geometry and topology of manifolds,
productive insights into parallels between various geometric flows,
and new applications of curvature flows to problems motivated by
materials science and physics. These objectives are well suited to
collaborations with other researchers in geometric evolution equations
and in related fields like comparison geometry, low-dimensional
topology, and nonlinear analysis.

The partial differential equations that arise in curvature flows are
remarkably similar to equations used to model heat propagation, the
movement of oil in shale and thin films, combustion in porous media,
and certain effects in plasma physics. By increasing our understanding
of singularity formation for such equations, the research elements of
this project may contribute to progress in these applications. The
education elements of the project are very tightly integrated with its
research focus. The cornerstone of this integration is a series of
annual workshops: each will contain a graduate education component, a
research component, and an undergraduate outreach component. The
education component includes an organized seminar to prepare graduate
students for participation in the research component. The outreach
component includes invitations to local undergraduate students to
interact with the visiting researchers with the goal of attracting
those students to further studies in mathematics. The project will
benefit undergraduate education in two other ways: the investigator
will develop a new course in optimal geometry and integrate it into
the liberal-arts honors curriculum at the University of Texas, and the
investigator will organize and direct an undergraduate
learning-by-discovery project in which students investigate
combinatorial curvature flows.